Engineering Faculty Internship: Statistically Sound Methods for Knowledge Representation and Probabilistic Inference

This Engineering Faculty Internship is a collaborative effort between the University and an industrial partner. It will result in a computer system that will provide human-machine integration within the production environment. The system, will use standard statistical process control methods for quality assurance plus Bayesian Analysis and will integrate the entire manufacturing facility under a user-friendly, multi-user, custom-made, data- base. This project has the potential to greatly enhance the quality assurance effort of the corporation. //